Group Travel for Participants in the Sixth International Conference on Archaeozoology, Washington, DC, May 21-25, 1990

The sixth International Conference of Archaeozoology (ICAZ) will be held in Washington, DC on May 21-25, 1990. To date, over 400 individuals have expressed interest in attending and most plan to present papers. This National Science Foundation will provide travel and subsistence expenses for a minimum of 20 participants. Archaeozoology is a discipline concerned with the analysis and interpretation of zoological remains from archaeological sites. Analysis of such fauna provides several kinds of crucial information to archaeologists. It provides insight into the diet of different prehistoric groups. As complex societies such as states develop, faunal remains yield crucial data on the development of economic and market systems and the centralization of political authority. They also shed light on prehistoric hunting and herding strategies and how these developed over time. Finally, analysis of faunal remains provides importance evidence on past climates and environments and how they were affected by human groups. Because archaeozoology is a broad intellectual field with many practitioners in both the Old and New Worlds, communication is extremely important. The ICAZ conferences have offered an very successful way to meet this need, and the Washington meeting should prove no exception. NSF support will assure that the most important papers will be presented. American science will benefit because U.S. researchers will be exposed to the most significant work now carried out in other parts of the world.